Presidential Faculty Fellow Award

9350473 Novak With the goal of developing an innovative polymer science program, Dr. Novak's research is focused on the development of new living polymerizations, new types of organic-inorganic hybrid materials, photoactive polymers, and aqueous-based polymerization chemistry. His teaching plan is to establish a polymeric materials program at both the undergraduate and graduate levels. ***